SSC: "Summer Science Camp: A University and Industrial Partnership to Enhance Minority Science Education and CareerPerspectives"

SSC-9450367 U of Nebraska-Lincoln Lincoln, NE Smith, James III, John Rohde, Robert Maher, Jody Redepenning and Suzanne Rohde "Summer Science Camp: A University and Industrial Partnership to Enhance Minority Science Education and Career Perspectives" To increase racial minority participation in science, engineering, and mathematics (SEM) careers, the university of Nebraska-Lincoln is seeking funding for a National Science Foundation Summer Science Camp. This residential Summer Science Camp Project will serve 40 middle school youth annually from the Lincoln, Nebraska, Public School District. The Project will recruit underrepresented minority students from low-income backgrounds whose parents lack a college degree and involve these students in educational activities following their seventh or eighth grade year. Over the 36-month period from 1 April 1994 to 31 March 1997, there will be 120 total Project participants. one of the Project's strengths is that it will draw on the complementary talents of university professors, active professionals in the field, and certified public school teachers working together as an integrated team. The paid staff will include a Project Coordinator, six Educational Consultants from the university faculty, three certified secondary-education Instructors, and four live-in Residential Advisers responsible for supervision and peer interaction in the residence halls. Uncompensated volunteers will include a team of mentors drawn from SEM-based industries in the locality. Leadership will be provided by a Director who has over 20 years' experience in educational administration and whose salary is paid by the University of Nebraska. The Summer Science Camp will consist of three components. First, eligible students will be recruited for the Project, selected for participation, and invited to an orientation meeting with their parents in the spring. Second, during the six-week summer component, participants, will be offered a variety of activities including motivational science and math enrichment courses, field trips, practical applications, and actual research experiences at the University. These activities will enhance students' awareness of SEM career options, prepare them to succeed in the related preparatory courses, and build a sense of community for positive peer support. Third, through the academic year component, the Summer Science Camp Project will make available numerous resources to promote the continued academic success of participants. The faculty involved in this Project will publish its details and results in professional journals. ***